Unidata: Next-generation Data Services and Workflows to Advance Geoscience Research and Education

Unidata is a community data facility for the atmospheric and related sciences, established in 1984 by U.S. universities with sponsorship from the National Science Foundation. Unidata's goal is to help transform the conduct of research and education in the atmospheric and related sciences by providing well integrated data services and tools that address the entire scientific data lifecycle, from locating and retrieving useful data, through the process of analyzing and visualizing data either locally or remotely, to curating and sharing the results. Unidata serves more than five thousand of educational, government, and research institutions that rely on Unidata technologies worldwide.